SEAM 2016: The 32nd Southeastern Analysis Meeting

This award provides funding to help defray the expenses of participants in the conference "SEAM 2016: The 32nd Southeastern Analysis Meeting" that will be held March 13-15, 2016, on the campus of the University of South Florida.

This event is the latest installment in a thirty-one-year-long series of conferences covering a wide spectrum of subareas of analysis. In particular, SEAM has become the leading conference venue in the U.S. for function-theoretic operator theory. SEAM 2016 will again span a broad swath of analysis, featuring three plenary speakers who will address topics in complex analysis (Stephen Gardiner), harmonic analysis (Alexander Volber), and approximation theory (Doron Lubinsky). A highlight of the meeting will be invited talks by five junior mathematicians: Tom Alberts, Kelly Bickel, Greg Knese, Shahaf Nitzan, and James Pascoe. The conference program provides ample opportunity for graduate students, postdocs, and other young scientists to present their work.